GOALI: EFFECT OF CHEMICAL AGENTS ON THE MECHANICAL PROPERTIES OF SALIVARY PELLICLE

0602479
Mann

The objective of this proposal is to investigate the effects of tannins, chlorhexidine, peroxide, and sodium bicarbonate on the mechanical properties, morphology, and intermolecular bonding of salivary pellicle using nanoscale mechanical testing.
This proposal aims to answer the following questions:
1. What are the properties of the salivary pellicle that makes it perfect lubricant against abrasive effects on the teeth?
2. How the staining agents effect the mechanical properties, morphology, and intermolecular bonding of salivary pellicle?
3. What are the effects of whitening agents on the mechanical properties, morphology, and intermolecular bonding of the stained pellicle?